Studio Environment for Introductory Statistics

This project is providing equipment for a studio classroom for statistics instruction. The studio format is replacing the traditional lecture delivery method for introductory statistics courses by allowing the integration of multimedia instruction, student-centered activities, and computer simulations. The design of the studio fosters student instructor interaction, student student interactions, team projects, and small group activities. The project is benefitting approximately 1,500 students per year. *